NNA Track 2: Collaborative Research: Foundations for Improving Resilience in the Energy Sector against Wildfire on Alaskan Lands (FIREWALL)

Navigating the New Arctic (NNA) is one of NSF's 10 Big Ideas. NNA projects address convergence scientific challenges in the rapidly changing Arctic. The Arctic research is needed to inform the economy, security and resilience of the Nation, the larger region and the globe. NNA empowers new research partnerships from local to international scales, diversifies the next generation of Arctic researchers, enhances efforts in formal and informal education, and integrates the co-production of knowledge where appropriate. This award fulfills part of that aim by supporting planning activities with clear potential to develop novel, leading edge research ideas and approaches to address NNA goals. It integrates aspects of the natural environment, built environment, and social systems, and addresses important societal challenges, builds significant educational opportunities, and engages with local communities.

Destructive wildfires in the Arctic, which are projected to grow in increased frequency and magnitude, are driven by multifaceted factors such as environmental change, expanded wildland-human interface, and lack of models to integrate natural, engineering, and social sciences to help coordinate response and recovery decisions. The interaction between the energy network and wildfires is highly interrelated since wildfires are compounded directly and indirectly by inaccurate and imprecise management of the energy network. The situation becomes further complicated in Arctic regions with complex terrain, constant exposure to nature’s forces, and vulnerable infrastructure, leading to economic and social losses. Though a series of workshops, this NNA project enables creative brainstorming, builds synergistic models, and guides multidisciplinary discussions that will generate knowledge on better understanding, navigating, planning, and adapting to evolving Alaska wildfire regimes. Through the lens of energy resilience, the project supports building stronger ties and facilitates a two-way dialogue among researchers, local communities, and stakeholders to provide solutions for emergency preparedness, operational endurance, and enhanced resilience to wildfires.

This NNA planning grant expands scientific understanding of interactions between natural environment, energy infrastructure, and social systems before, during, and following wildfires. It generates knowledge about the interaction of wildfires with energy systems and builds on those insights to develop research directions and roadmaps to deploy advanced energy technologies for structural and operational resilience against wildfires, while considering legal and regulatory requirements and local community needs. The project shapes research directions on the varied wildfire triggers in Alaska, enhances understanding of interactions of Alaskan energy networks and wildfires, and guides strategic plans for wildfire resilience. Further, the project engages local Alaskan communities with an integral and active role in implementing plans against the undesirable social, psychological, and physical outcomes of wildfires. The workshops in this project engender a multidisciplinary team that uses the knowledge and relations gained to develop engineering solutions to social and environmental challenges, strengthen the connections between Arctic and non-Arctic communities, and provide Arctic residents with educational opportunities to train the workforce of the future on Arctic wildfire resilience.